Design of Functional Graphenic Substructures

Carbon is the backbone of life and the foundation of modern materials science. Graphene, a single atomic layer of carbon atoms arranged in a honeycomb lattice, possesses extraordinary electrical, optical, and mechanical properties that make it one of the most exciting materials ever discovered. However, harnessing graphene's potential requires the ability to design and build precise molecular substructures with atom-by-atom control over their architecture. In this project, Professor Igor V. Alabugin of the Department of Chemistry and Biochemistry at Florida State University is developing new chemical tools to construct functional graphene-like molecules from the ground up. These designer carbon structures have potential applications in next-generation microelectronics. The project will train the next generation of American scientists, including undergraduate and graduate students from diverse backgrounds, in cutting-edge synthetic, computational, and spectroscopic techniques. Outreach activities include public science videos, international mini-courses, and contributions to global open-access educational platforms, ensuring that the benefits of this research extend well beyond the laboratory.

This project develops functional graphenic substructures by exploiting Clar's aromatic sextets as robust design elements to control electronic structure, spin multiplicity, and supramolecular behavior in polycyclic aromatic hydrocarbons (PAHs). The work is organized around four specific aims. Aim 1 develops scalable tris-iodocyclization chemistry using iodine nitrate as a selective electrophilic agent, enabling near-quantitative synthesis of three-fold symmetric triiodide intermediates that serve as versatile platforms for downstream functionalization via cross-coupling and Scholl aromatization. Aim 2 leverages these intermediates to build a homologous series of radially extended, fully-benzenoid nanographenes that function as carbon quantum dot analogs, and assembles them into symmetric and asymmetric cyclophane architectures to probe exciton funneling, directional charge transport, and broadband light harvesting. Aim 3 exploits Clar sextets as electronic insulators to stabilize open-shell PAHs, including di-, tri-, and tetraradicaloids as well as chiral helicene-based diradicals, targeting systems with near-degenerate singlet–triplet gaps relevant to singlet fission, nonlinear optics, spintronics, and qubit design. Aim 4 pursues modular bottom-up synthesis of porous graphenic frameworks with preprogrammed cavity sizes and shapes through three complementary routes: on-surface Ullmann and cyclodehydrogenation chemistry, electrochemical Scholl deposition onto carbon electrodes, and Sonogashira cross-coupling at liquid/liquid interfaces. Together, these efforts integrate molecular design, mechanistic analysis, and functional characterization to establish general principles for controlling structure–property relationships in nanographene architectures, bridging fundamental organic chemistry and advanced carbon-based materials.